Reduced Complexity Manipulation with the Parallel-Jaw Gripper: 2-Year Plan for Extended Research

For manufacturing industries to remain competitive, considerations such as the ease of assembly, graspability, and ease of feeding must be taken into account when products are designed. This grant provides an extended opportunity to attack exciting new research topics that fall within the same general research area as the original grant: combining sensors and actuators with few degrees of freedom to grasp and orient parts. Remaining open problems related to the parallel-jaw gripper include a fast algorithm for estimating 2 point frictional grasps of a given polyhedral part and finding grasps that will permit the part to be pivoted into the desired final pose under an active pivot servo. We will also investigate how parts can be oriented and sorted as they move on a conveyor belt against a passive sequence of fences and a method for systematically feeding parts with controlled vibrations on a metal plate. Sony uses a variant on this idea in their APOS system but they do not have a science base for programming it. The aim of this new research is to develop such a science base.